Young Memphis Scholars

9552918 Tigyi The University of Tennesee Memphis will initiate an 8-week, commuter Young Scholars project for 35 high-potential 10th graders during the summers of 1996 and 1997. The disciplinary focus of the program is biomedical science with additional emphasis on mathematics and biostatistics. Each student will work in the laboratory with a University of Tennessee, Memphis faculty member to develop research skills and conduct a research project. Academic coursework, career counseling, and a study of science ethics are included in the project. Students present their research in a poster session/science fair at the conclusion of the program.